East Coast Computer Algebra Day, April 25, l998, U.S. Naval Academy, Annapolis, MD

A one day meeting, called the East Coast Computer Algebra Day (ECCAD), will be held at the US Naval Academy, Annapolis, Maryland, on April 25, 1998. This series of meetings has become a regular event for the region, with different academic and industrial institutions hosting the meeting in rotation. The purpose of this meeting is to stimulate interest in and enhance understanding of the technical aspects of computer algebra, by providing a way for those in the region who are active or interested in becoming more active in computer algebra to meet with each other in an inexpensive and easily accessible way. This meeting is more informal than the annual ISSAC meetings, with ample time for unstructured interaction. Participation by the region's graduate students is particularly encouraged through special invitation to contribute to the poster sessions, and through travel support. Three invited lectures will anchor the meeting and will help attract participants. The invited talks and poster sessions contributed by the community will cover the breadth of computer algebra: algorithms, software, and applications.